Epsiodic Events and Cross-Margin Transport in the Great Lakes: HF Radar Observations of Currents, Winds and Waves

9726683 Vesecky Research will be undertaken in response to an Announcement of Opportunity (NSF 97-38)for Coastal Studies in the Great Lakes. This collaborative research project between investigators from 13 academic and government research institutions is being conducted under the auspices of the NSF Coastal Ocean Processes (CoOP) program and the NOAA Coastal Ocean Program. This 5-year research program will focus on the importance of episodic events on nearshore-offshore transport and subsequent ecological consequences. The study seeks to 1) determine what processes control the cross-margin (inshore to offshore) transport of biological, chemical, and geological materials in the coastal margins of the Great Lakes, and to 2) develop and test scientific strategies for assessing, quantifying, and predicting the impacts of multiple stresses both natural and anthropogenic, in the Great Lakes or selected coastal sub- regions. A tight coupling between contaminated sediments and overlying water exists in lakes and coastal ecosystems through the process of sediment resuspension. Satellite observations in Lake Michigan illustrate an annually recurrent episode of nearshore-offshore transport, a 10 km wide plume of resuspended material extending over 200 km along the southern shores of the lake. Preliminary evidence indicates that this episodic event may be the major mechanism for cross-margin sediment transport in Lake Michigan. This type of event impacts recycling of biogeochemically important materials (BIMS), ecosystem responses, cross-isobath transport in the Great Lakes. The program results will be applicable to similar events in many coastal areas. This comprehensive, interdisciplinary study will implement an integrated observational program and numerical modeling effort to identify, quantify, and develop prediction tools for the winter- spring resuspension event and to assess the impact of this event on the transport and transform ation of BIMS and on lake ecology. This component of the study focuses on real time measurements of key air and water variables necessary for the observational, modeling and forecasting activities, in particular surface currents, winds and waves that are pertinent to the overall objectives. Two multifrequency HF radar units will be deployed along the shore of lower Lake Michigan to provide real time observations of near surface current and current shear, wind direction and wave height over an area of about 2500 sq. km. adjacent to the lower Lake Michigan shoreline. This work will contribute to the overall goals of understanding episodic events and cross-margin transport in the Great Lakes and developing a portable data assimilation nowcast/forecast system based on the lower Michigan results.